MRI: Instrumentation Development for Sustainable Distributed Cyber-Aquatic Systems

Proposal #: 11-27084
PI(s): Wang, Lei; Cui, Jun-Hong (June); Li, Baikun; O’Donnell; Wang, Bing
Institution: University of Connecticut
Title: MRI/Dev.: Instrumentation for Sustainable Distributed Cyber-Aquatic Systems
Project Proposed:
This project, called DiCAS, developing a novel instrument and testbed environment based on an underwater sensor network platform that harvests energy underwater and incorporates power metering and power/performance tradeoff-aware schemes and protocols for longer network life, considers specific underwater characteristics, such as underwater faults and communication link conditions. Adaptive strategies to save energy will be built as part of the work. The instrument enables research in/with:
- Advanced instruments and tools that enable researchers to observe physical, chemical, and biological processes and monitor the aquatic environments in real time, across broad physical expanses and durations, continuously and reliably;
- Novel hardware and software for the cyber-aquatic system;
- Two types of testbeds:
-- Lake field testbed;
-- Sea field testbed,
with specific applications using the testbed for:
--- Resolving vertical mixing in the ocean;
--- Identifying/predicting harmful algae; and
--- Monitoring distributed offshore oilfield infrastructure.

Broader Impacts:
This project, unique in its goals and expected results, exhibits potential for large broader impacts in the area of sustainable aquatic observation and exploration systems. The instrument will enable a wide range of research activities, from aquatic scientific research (such as oceanography, limnology, and hydrology) and pollution detection, to offshore oil/gas exploration and coastal and harbor/port protection. Planned is a unique hands-on learning environment for undergraduate and graduate students, as well as a program engaging K-12 students and teachers, particularly in underserved communities. The PIs have prior track record of involving women, minority, and undergraduate students in their research.